RUI: Development of Nonorthogonal Fusion Frames and Reflective Sensing with Applications

Li
DMS-1010058

The investigator develops a new (non-orthogonal) fusion
frame, a notion of reflective sensing, and their applications.
They are derived from the need for sparse fusion frame operators
for efficient data fusion applications in general distributed
systems. Theme 1 of the project defines a new non-orthogonal
fusion frame. Preliminary studies show that the matrix
representation of the new fusion frame operator can be diagonal
over the same example where the existing fusion frame operator is
completely sparse-less. Because the fusion operation ultimately
involves the inverse of the fusion frame operator, and because
subspace transformations are generally unavailable in practical
data fusion applications, such a new fusion frame with sparse or
diagonal fusion operator becomes crucial. Theme 2 studies a
notion of multi-fusion frames based on multiple non-orthogonal
projections onto one subspace. Nearly surprisingly, the new
multi-fusion frame operator defined on one proper subspace can be
easily positive and invertible. A number of theoretical issues
are to be understood. Rooted in studies of themes 1 and 2, theme
3 outlines a notion of reflective sensing and multiple reflective
sensing. Their theory and applications in side-measured
tomography and multi-path wireless signal receiving are examined.
It is relevant to point out that the implementation of
non-orthogonal projection operators is naturally achievable,
based on earlier work by the investigator on pseudoframes for
subspaces.

The project relates to signal processing applications.
Signal processing generally refers to making the signal easy to
handle or of better quality. It is everywhere seen in our modern
society. In this project, the principal novelties introduced to
signal processing are the new notion of non-orthogonal fusion
frames and ideas of performing data fusion from, e.g., wireless
signals received from multiple paths. Fusion frame is a notion
developed specifically for various data fusion applications.
Data fusion means combining data measured by different devices or
by different means in order to obtain refined data. The
advantage of non-orthogonal fusion frames lies in the fact that
they greatly improve efficiency of the data fusion procedure in
practical sensor networks, particularly when the amount of data
is large. The project aims to develop effective methods of
combining data detected in an array of sensors where information
overlay (among sensors) is abundant and unpredictable. With
extremely complicated information overlaps, exact and efficient
data combination is made possible by non-orthogonal fusion
frames. In particular, the project explores image fusion to
provide a combined image of much greater precision or resolution
without ad-hoc procedures present in conventional techniques.
Data fusion problems arise in many applications, ranging from
commercial imaging to geographic survey, mapping, wireless
communication, multi-sensor/camera surveillance systems, and a
great number of sensor network applications.